A Petrologic and Geochemical Study of Fluid Flow, Diagenesisand Deformation in the Frontal Region of the Cascadia Accretionary Wedge

The development of the accretionary wedge offshore Oregon involves the consolidation and fluid loss of the sediments that compose the wedge. This project will use a combined petrographic and isotopic study of carbonate cements from the accretionary wedge sediments to constrain fluid sources for different generations of cement.